Development of an Integrated Multidisciplinary Curriculum for Intelligent Systems

This award provides funding to Texas A&M University for the support of a three year Combined Research-Curriculum Development (CRCD) project entitled, "Development of an Integrated Multidisciplinary Curriculum for Intelligent Systems," under the direction Dr. Dimitris C. Lagoudas. The project will develop both a curriculum track in Aerospace Engineering and a multidisciplinary engineering minor in Intelligent Systems. Both the curriculum innovations will be built around intelligent controlled reconfigurable vehicles, which is currently an area of active research by the project team.